Workshop: Einstein in the City: A Student Research Conference at City College of New York (CCNY)

In commemoration of the 100 years of the Einstein Papers, and to celebrate the role that
The City College of New York played in Einstein’s travel to the US, a Student Research
Conference will be held at the City College of New York on April 11-12, 2005. This
multidisciplinary conference will highlight and broadcast students’ participation in the
academic research endeavor. Special guests at this conference will include distinguished
City College alumni, including Nobel Laureates Drs. Leon Lederman, Herbert Hauptman, Arno
Penzias, Jerome Karle, Julius Axelrod, Arthur Kronberg, and Kenneth Arrow.

Intellectual merit: The proposed student research conference will stimulate student
research in engineering and the sciences.

Broader impact: The conference publicity will broaden awareness of Einstein among the
broader community and make students more aware of research opportunities in science and
engineering.